Metal Oxo Complexes. Oxidation Mechanisms.

The focus of this award from the Inorganic, Bioinorganic and Organometallic Chemistry Program is the oxidation of organic molecules by compounds of the transition metal ruthenium. The aims of this research are to elucidate the mechanisms of these reactions and to exploit this knowledge to achieve high degree of selectivity in the oxidation of organic molecules. It is likely that these metal compounds can be used ultimately as catalysts for the oxidation of organic molecules by atmospheric oxygen, a process of substantial importance in industry and in the destruction of toxic substances. The mechanistic details of the oxidation of a variety of organic and inorganic functional groups by polypyridyl oxo complexes of ruthenium(IV) will be investigated. The mechanistic work will be extended to the oxidation of olefins, aromatic hydrocarbons, amines and other inorganic and organic functional groups. An attempt will be made to acquire detailed insight into hydrogen atom and hydride transfer pathways which occur with large isotope effects, and an attempt will be made to establish the existence of long range, proton coupled electron transfer pathways. Extensions will be made in the underlying descriptive chemistry of metal-oxo complexes, to the reactivity properties of dioxo complexes, and to the preparation and characterization of complexes in which ligand bridges span different metal-oxo sites. The interest in multiple oxo complexes comes from their multiple electron acceptor capabilities and the possibility of using controlled molecular dimensions to achieve oxidative selectivity.